Postdoctoral Research Fellowships in Chemistry

Dr. Patrick J. Walsh has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Walsh's doctoral degree was from the University of California (Berkeley) under the supervision of Professor Robert G. Bergman. Dr. Walsh intends to continue research at the Massachusetts Institute of Technology under the sponsorship of Professor K. Barry Sharpless. Dr. Walsh's area of postdoctoral research and training will be the application of transition metal catalysis to synthetic organic chemistry. His long-term research interests are concerned with the asymmetric aziridination of olefins by transition metals. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.